Molecular and Genetic Analysis of Hybrid Breakdown During Hyperosmotic Stress in the Copepod Tigriopus calfornicus

Isolated conspecific populations of organisms come to encompass unique genetic allele complexes through processes such as local adaptation, random drift and mutation. When these populations are brought together in the laboratory the hybrid organisms often exhibit reduced fitness (ie. hybrid breakdown). Though hybrid breakdown has been a long standing observation in biology, little progress has been made in understanding the genetic mechanisms which underlie the processes. This project will investigate, on a genetic and molecular level, hybrid breakdown between naturally occurring populations of the intertidal copepod Tigriopus californicus. Like most marine crustacea and many other marine invertebrates, T. californicus adjusts the levels of free amino acids (FAA) in response to salinity changes. Specifically, proline synthesis from glutamate is induced by hyperosmotic stress. Interpopulation crosses yield F2 hybrids which are unable to accumulate proline in response to hyperosmotic stress (though parental and F1 hybrids can). Using heterologous probes and/or functional complementation in Escherichia coli auxotrophs the genes involved in proline synthesis in T. californicus will be isolated and characterized. These genes will then be used to examine the molecular and genetic mechanisms which underlie hybrid breakdown in response to hyperosmotic stress.